Panoramic wavefield recovery via conformal aperture synthesis sensor arrays

Optical imaging is essential for inspecting manufactured components, studying new materials, and investigating biological samples. The demands on microscopy are expanding to include curved and three-dimensional (3D) objects, from engineered structures with internal surfaces to biological specimens that are intrinsically 3D. Meeting these needs is difficult because conventional microscopes face a persistent trade-off. High-resolution instruments that capture fine detail can view only small, flat areas at short working distances, whereas systems that view larger areas often lose resolution. This leaves a growing need for wide-field, deep-focus 3D imaging that can reach into curved and confined geometries. This project will develop a new lensless imaging approach that arranges small image sensors around a curved object. Instead of imaging many small regions separately, the approach captures a wide curved field more directly. By using computation to recover and combine light-wave information from multiple sensors, it creates quantitative 3D images over wide fields while maintaining micrometer-scale detail. A primary benefit is for advanced manufacturing, where parts could be inspected inside a machine without removing them and interrupting production. The same imaging principles also extend to biomedical imaging, where curved tissues and cell cultures could be studied in more natural formats. The project will also develop low-cost educational microscope modules and open teaching materials that help K–12 students learn about optics, imaging, wavelength, spectrum, and computation through hands-on experiments.

This project will establish the theory, instrumentation, and validation of a new lensless imaging approach called the Conformal Aperture Synthesis Sensor Array (CASSA), aimed at panoramic and volumetric imaging of curved geometries. CASSA builds on a recently demonstrated planar lensless sensor-array platform and extends it to cylindrical and conformal arrays that recover both intensity and phase from coded image sensors, then coherently combine those measurements into a larger effective aperture. The central hypothesis is that computational wavefield reconstruction can remove the spatial and form-factor constraints imposed by conventional lens systems, enabling sensor arrays that conform to curved specimen environments while supporting centimeter-scale field of view, working distance, and depth of field, with micrometer- to sub-micrometer-scale lateral detail. This capability addresses needs in advanced manufacturing, where internal bores, threads, channels, and additively manufactured features would benefit from quantitative in situ inspection that maintains registration to the machine coordinate system. It also addresses needs in biomedical imaging, where label-free 3D assessment methods that operate in natural curved formats would support studies of luminal tissues, organoids, and live microtissues. The research has three integrated aims. First, the team will establish curvature-aware reconstruction theory and quantify how curvature, sensor-code spacing, and inter-sensor overlap affect synchronization, stitching, and accuracy. Second, the project will develop cost-efficient, self-contained cylindrical instrumentation that uses image-based self-alignment to reduce mechanical precision requirements while preserving high optical resolution. Third, the project will extend CASSA to transmission-mode volumetric imaging by coupling curvature-aware wave propagation with tomographic inversion and multiview geometric consistency. The lensless architecture supports broad illumination wavelengths, allowing the project to balance resolution and penetration depth across sample types. The expected outcome is a validated framework for panoramic and volumetric imaging with curved sensor arrays, including design rules, reconstruction algorithms, prototype instruments, shared datasets, and open educational resources.